Engineering Research Equipment: Near Infrared Time Resolved Spectroscopy

9610420 Kang The Department of Chemical and Biochemical Engineering at the University of Maryland Baltimore County will purchase a Near Infrared Time Resolved Spectroscopy system, which will be dedicated to support research and education in engineering. The equipment will be used for several projects including in particular: deep vein thrombosis detection in the leg, absorption and scattering coefficient determination for a system; real-time automatic data reduction; engineering control and bioinstrumentation courses. ***